Kratt Bros. Creature Team

The Kratt Brothers Company will produce a full-length pilot of Kratt Bros. Creature Team, a television/multimedia project that teaches science concepts through animated adventure stories to 6-8 year old children. Deliverables include the pilot and its evaluation, an online plan, and outreach plans for a new television series designed for PBS. The project materials will infuse age-appropriate content across multiple disciplines of science and emphasize an inquiry-based approach to learning. The goals for the project are to engage the target audience in science learning building on their natural interest in animals; introduce viewers to basic skills of observation and investigation; and foster positive attitudes toward science. Project partners include PBS stations, the American Association of Zoos and Aquariums (AZA), and 4-H. Multimedia Research will conduct formative evaluation of the project.